REU Site in Wireless Communication Networks, Antennas and Propagation, and Radio-Frequency Circuits

This award provides a 3-year award to Clemson University for a REU Site in Wireless Communication Networks, Antennas and Propagation, and Radio Frequency Circuits, under the direction of Dr. Daniel Noneaker. This program is designed to give10 undergraduate participants each summer an opportunity to develop an in-depth understanding of a significant research problem in wireless communications. Each student will pursue ten weeks of directed research in the areas of communications systems, mobile communication networks, broadband antenna design and characterization, and RF and millimeter-wave circuit design.